Target Science

Target Science is a project designed to develop a replicable model for revitalizing the teaching of K-12 science in highly impacted urban schools. The goals of Target Science are to (1) provide replicable methods for science teachers and their private sector, university, and community partners to collaboratively identify needs for improving instructional delivery, and then develop strategies that will successfully respond to these needs, and (2) provide replicable methods to channel science-rich community resources to science teachers in a manner that will facilitate and stimulate positive and enduring change in the delivery of K-12 science instruction. Target Science is designed to meet these goals by creating a model that (1) builds an environment to nurture and stimulate change (K-12 Service Dialogues, Science Forums, and Family Science Workshops), (2) establishes methods for improving science teacher knowledge bases and instructional delivery techniques (Mini-grants, Science Center Grants, Professional Development Grants, K-12 Science Workshops and IISME) and (3) enhances communications in general and information exchange in particular (TELEventure). Cost sharing by the partners will total 738% of the NSF funding.